Phylogenetic Analysis of Coevolutionary Change at the Molecular Level

The complex interactions among macromolecular species in living cells provide a number of opportunities for evolutionary change to take place in each of the components involved in the interaction. An important feature of such molecular coevolution is that the interacting components in one evolutionary lineage can evolve along a pathway which differs from the same components in another species. This could lead to adaptively significant differences among species in the functional properties of the particular molecular system. An investigation of the functional divergence that has arisen among species in the system responsible for making the 18s and 28s ribosomal RNAs in mammals is proposed. It has been found that the nuclear transcriptional machinery from one species is often not capable of interacting with the DNA regulatory sequences involved in controlling ribosomal RNA gene expression from other species. The rate of evolutionary change in the transcription factors and the controlling elements of these genes will be studied. The analysis of this model system may be especially significant since it involves the analysis of evolutionary changes in elements affecting the control of gene expression. Such changes have been proposed by many to be at the basis of the characteristic differences in physiology, morphology and biochemistry that have accumulated among species during evolution.